Life in a Physical World

The North Carolina Museum of Life and Science requests $491,260 to develop exhibits which explore mechanics of living organism. Basic physics, optics and fluids dynamics will be presented in the context of biological systems. Life in a Physical World interactive exhibits and educational materials which will reach over 3 million people. Life in a Physical World meets the needs of teachers, students and other science learners. The exhibits and educational materials integrate science concepts across disciplines. They provide hands-on, motivating science experiences in a non-threatening environment. Life in a Physical World makes physical science concepts accessible by presenting them in the context of living things. Project Outcomes The Project will produce a 2,000 square foot permanent and travelling Life in a Physical World exhibits. The North Carolina Museum of Life and Science will install the permanent exhibition. To ensure broad dissemination, the Association of Science-Technology Centers will circulate the travelling exhibition nationally and the Museum will distribute as-built drawings to science centers, natural history museums and zoos. Museum Educators will produce materials to enhance the instructional value of the exhibition.